Expanding the Horizon: A Study of Black Hole Accretion

AST-0205697
Miller, Jon

Dr. Miller is awarded an NSF Astronomy and Astrophysics Postdoctoral Fellowship to carry out a program of research and education at the Harvard-Smithsonian Center for Astrophysics. He will study black hole accretion for a wide range of black hole masses and accretion rates, searching for common geometries and underlying physics. He will study inner accretion flows of stellar-mass black holes and active galactic nuclei at many wavelengths, and will search for radio, optical, and UV counterparts to the newly-accessible class of black holes of intermediate mass and/or extremely high accretion rates. In education, he will develop a series of web-based video lectures on new and recent results in astronomy, whch may serve as a supplement to high school courses in earth science, physics, or astronomy.
***